Single-Molecule Optical Probes of Protein Biophysics

Moerner
MCB 9816947

1. Technical

As a result of the success of single-molecule optical detection and
spectroscopy, first at low temperatures, and more recently at room
temperatures, a particular opportunity exists to apply these methods to the
elucidation of important outstanding problems in the understanding of
protein dynamical and functional behavior. Single-molecule methods
completely remove ensemble averaging, thus allowing direct observation of
heterogeneity that is normally hidden. True distributions of measured
properties over members of the ensemble may be measured, allowing a
detailed picture of complex and inhomogeneous environments. For
time-dependent processes, following individual proteins one at a time
through the enzymatic cycle removes the need for synchronization of the
ensemble. Finally, since the single-molecule limit is a previously
unexplored regime, new and unexpected behavior is likely to occur, such as
the blinking and switching of single copies of green fluorescent protein
mutants observed recently. This study is an interdisciplinary effort to
invetigate several aspects of protein and enzyme dynamics and function
using optical single-molecule detection and spectroscopy with in vitro
techniques. The important advantage of the single-molecule regime is that
signatures of the conformational state which are normally buried in large N
(N = number of copies) experiments will become uniquely accessible to
study. The principal biological problems of interest are the photophysical
dynamics of green fluorescent protein and its mutants, the mechanochemical
cycle of kinesin motor protein, and the protein association and enzymatic
behavior of cAMP-dependent protein kinase. The stuidy utilizes
diffraction-limited confocal, total internal reflection, and far-field
optical microscopy and spectroscopy to explore the biophysical behavior of
single copies of proteins and enzymes, specifically to fully characterize
and understand the mechanism for the unexpected blinking and switching
behavior recently observed for single copies of green fluorescent protein,
and to apply single-molecule imaging, polarization, and energy transfer
methods to explore protein conformational states associated with the
mechanochemical behavior of motor proteins in the kinesin superfamily, and
utilize single-molecule optical spectroscopy and microscopy to detect and
characterize the enzymatic action and protein subunit association and
dissociation for cAMP-dependent protein kinase A. To accomplish these ends,
the PI's physical, chemical, and optical expertise will be combined with
the molecular biological and biochemical expertise of several talented
collaborators. In the final analysis, owing to its multidisciplinary
organization, the fundamental research in this program will not only
generate new knowledge about the biophysical properties of several
important protein systems, but, in addition the advances in instrumentation
will provide novel groundwork for technology
transfer to other relevant disciplines, and the increased knowledge about
optically driven changes in state of fluorescent proteins like green
fluorescent protein may lead to the engineering of mutants capable of use
as optical recording and storage elements.

2. Non-technical

This study reaches into a new realm: that of observing and understanding
individual, single copies of proteins. The methods utilized are optical,
i.e., using light to probe individual molecules, which allows us to probe
time-dependent, dynamical events as each protein copy performs its function
as an enzyme. A key difficulty encountered in most conventional experiments
which look at a huge number of protein copies at the same time, is that
synchronization of the different copies is not easily possible. This means
that any inhomogeneity is obscured. For an analogy, assume that many
people are in a room, all reading the same text such as the Bill of Rights,
but that they did not start together. (In the protein world, this might be
an assembly of proteins each at different stages in the enzymatic cycle.)
Since all the individuals are marching to a different drummer, the net
effect is something like the cacophony that one hears in a crowded
restaurant. By developing and using the new methods of single-molecule
spectroscopy, one is effectively able to listen to each person in the room
separately. It will then be possible to discern different dialects that
might be spoken by the different individuals, or even to tell if some of
them are actually reading the Preamble to the Constitution instead.
Returning to the protein world, this study is expected to learn important
details about the exact cycle the protein follows to perform a useful
function, and in particular, if some individual copies are intrinsically
different due to the fold of the protein or to some other unforeseen
modification.